Local, Regional and Remote Effects of Northern Hemispheric Snow Cover on Western U.S. and Water Resources: A Multiscale Investigation

Abstract
ATM-9900687
Nolin, Anne W.
University of Colorado
Title: Local, Regional and Remote Effects of Northern Hemisphere Snow Cover on Western U.S. Climate and Water Resources: A Multiscale Investigation

The primary goal of this collaborative investigation is to identify, characterize, and quantify the local, regional and remote effects of snow cover on the western US climate and water resources. The present proposal considers snow not as a passive responder but as an active driver of climate variability on multiple scales. The effects of snow cover within the western US and the climate signals due to remote snow forcing will be considered. Empirical analyses and a suite of model experiments will be conducted. The work is important because it will lead to enhanced understanding of the role of snow cover in climate variability on a range of spatial and temporal scales.